Nonclassical PDO and Some Practical Problems of Local Tomography

Alexander Katsevich ABSTRACT Theory of pseudo-differential operators (PDO) is a powerful tool which has been successfully used in diverse areas of mathematics and, in particular, in tomography. In the classical theory, PDOs are assumed to have infinitely differentiable symbols. Although this is frequently the case, the assumption about smoothness is very restrictive and does not allow one to address important practical problems. Two cases where this assumption is especially restrictive are as follows: limited-angle local tomography and Single Photon Emission Computed Tomography (SPECT) with nonsmooth attenuation. Here one is interested in recovery of the wave front of a distribution knowing only the result of applying a PDO with nonsmooth symbol to that distribution. Known results on PDOs, symbols of which have limited smoothness, do not apply because of specific nature of the singularities of the occurring symbols. Main objectives of the proposed research are as follows (1) To develop a theory of certain classes of PDOs with nonsmooth symbols which occur in tomography; (2) To develop algorithms for analysis of the limited-angle tomographic data and SPECT data when the attenuation coefficient is not smooth. In the case of the limited-angle data, our goal is to be able to recover as much of the visible singularities with minimal distortions as possible. This is especially important for the singularities which are located close to the boundary of the visibility range. In the case of SPECT, our goal is to demonstrate that local tomography can be used in the case of nonsmooth attenuation; and (3) To test the algorithms on numerical experiments. Significance of the proposed research is twofold. First, the expected results will advance our understanding of how PDOs with nonsmooth symbols transform wave fronts of distributions. Second, the expected results will help solve important practical problems. SPECT is a popular tool for noninvasive medical imaging. It is used in cerebral, cardiac, and other kinds of medical imaging. SPECT is based on reconstructing distribution of radionuclides inside a patient knowing counts of photons emitted from the patient along different directions on a plane. Depending on what kind of the radiopharmaceutical is used, the distribution provides different types of medical information about the patient. The main difficulty in analyzing the SPECT data comes from the fact that, in general, the photons emitted inside a patient are attenuated in a complicated, nonuniform manner. In this case, no inversion formula is known. Therefore, even though the photons are attenuated nonuniformly inside the patient, practically all current algorithms must assume that the attenuation coefficient is either zero or a constant. This results in attenuation artifacts, which remain a significant obstacle in the analysis of SPECT images. Even most recent approaches, that are based on the idea of local tomography and take into account variable attenuation, fail to consider the case of nonsmooth attenuation. Our results will provide for more accurate quantitation of SPECT images even when the attenuation coefficient varies from point to point and has discontinuities. It appears that our study will be the first to investigate theoretically effects of discontinuous attenuation on SPECT images. Research related to limited-angle local tomography is of importance in applications involving nondestructive evaluation of big pieces of equipment, where a scanning device cannot be rotated 360 degrees around the object. Examples are scanning of exit cones of rockets located on a gantry, jet engines, turbines, etc.